U.S.-China Cooperative Research (Biol): Evolution of ChineseDrosophila: Reproductive Strategies, Phylogenieslll, and a Search for the Ancestor to Hawaiian Drosophila

9317097 Kambysellis Craddock This award supports collaboration between Michael Kambysellis, New York University, and Peng Tongxu, Guangdong Entomological Institute, on the evolution of Chinese Drosophila and the comparison of the biology of island endemic species (Hawaii) with species endemic to continents. This will be a multiyear collaboration with part of the work being carried out in Guangzhou and part in New York. The collaborative arrangements will provide the opportunity to examine the speciose Chinese Drosophila fauna and make comparisons to the extraordinary drosophila fauna of the Hawaiian Island. This work contributes to the current worldwide efforts to understand and catalogue global biodiversity. The project will involve participation of graduate students in both China and the United States.